Proposal for the Creation of a Distributed National Labortory for Applied Network Research (NLANR

9415666 Braun General Atomics "Proposal for the Creation of a Distributed National Laboratory for Applied Network Research (NLANR)" This award funds a twenty-nine month project to assist NSF in supporting and coordinating research on the Very High-Speed Backbone Network Service (vBNS). The award provides for research scientists and technicians at each of the five NSF-supported supercomputing centers which connect to the vBNS. These personnel assist researchers who are running experiments on the vBNS in setting up and running the experiments and instrumenting the network to capture results, as required. A Research Coordinator also schedules the use of the network, assuring that the necessary equipment and instrumentation are in place and that conflicts between experiments are minimized. The five centers are the Cornell Theory Center, National Center for Atmospheric Research, National Center for Supercomputing Applications, Pittsburgh Supercomputing Center, and the San Diego Supercomputing Center.